CAREER: Bridging Nano, Micro and Macro-Scales in Complex Fluids

CTS-0238689
E. Furst
U Delaware

Two models are currently used to understand the rheology of gels: fractal- and percolation-based. The conclusions of each approach rely on the mechanics of particle chains that form gel backbones. The PI proposes to directly measure the microrheology of the gel backbone using optical micromanipulation, such as Optical 'tweezers', and probe microrheology based on the motion of embedded particles induced by magnetic or optical forces

The education program is mostly based on broad distribution of the course material and promoting interdisciplinary education.